Targeted Infusion Project: Engaging Undergraduates in STEM using Drosophila Behavioural Genetics (EUSTEM-DaBuGs TIP)

The Historically Black Colleges and Universities Undergraduate Program (HBCU-UP) through Targeted Infusion Projects supports the development, implementation, and study of evidence-based innovative models and approaches for improving the preparation and success of HBCU undergraduate students in STEM graduate programs and/or careers. The project at North Carolina Central University (NCCU) will develop an integrated undergraduate education, training, and research initiative in behavioral genetics and engineering design by creating Course-based Undergraduate Research Experiences (CUREs) in two courses: a sophomore elective and a junior required course. The infusion of cross-disciplinary CUREs into two biology courses, development of a cross-disciplinary summer research experience and the strengthening of the existing relationships with surrounding Research institutions will have a direct impact on students and faculty at NCCU. The project will facilitate student retention and motivate underrepresented minority students (URM) to pursue graduate studies and/or careers in STEM disciplines.

The overall goal of the project is to educate, train, and provide cross-disciplinary research experiences to URM students at NCCU; thus, facilitating a successful undergraduate matriculation within STEM majors and into graduate programs at nearby Research-1 institutions (Duke, UNC-Chapel Hill and NC State University). The specific goals are: 1) to infuse real-world research experiences including engineering design challenges and measuring Drosophila Behaviours and relating these behaviors to Genetics (DaBuGs) through two CURE courses and 2) to have sophomore/junior-level research fellows participate in a cross-disciplinary, summer research experience tied to a research mentoring course with the primary goal of completing authentic research and design projects begun in the two CURE courses. The long-term goal is to create an integrated engineering and DaBuGs education, training, and research initiative at NCCU. This is expected to increase student performance and enthusiasm in STEM, and expose URM students to engineering design and behavioral research through the sophomore- and junior-level biology CUREs.